Research Initiation: Investigation of the Mechanisms Responsible for Increased Antibody Production by Hybridomas Exposed to Stress

RESEARCH INITIATION AWARD: INVESTIGATION OF THE MECHANISMS RESPONSIBLE FOR INCREASED ANTIBODY PRODUCTION BY HYBRIDOMAS EXPOSED TO STRESS ABSTRACT Monoclonal antibodies are among the largest-volume products made using mammalian cells. Increased antibody production has been reported for hybridomas exposed to environmental stress. The objectives of this project are to characterize the mechanisms responsible for increased antibody production, and to identify reactor conditions with increased productivity. Concurrent changes in energy metabolism and DNA synthesis will be monitored in order to determine the interrelationships between the regulation of cell growth, energy production and protein expression. An understanding of these relationships is required in order to decouple cell growth from product formation. Excessive cell growth is not desired because expensive medium is wasted on the production of biomass. Reduced cell growth rates are also desirable because many primary, hybrid, and genetically- altered cell lines decrease their rate of product formation after repeated cell divisions.